High Resolution Imaging of the Subducted Slab in the Cascadia Convergence Zone Using Teleseismic P Wave Conversions Recorded with a Dense Array of Seismometers

This research is to study the deep structure of the Cascadia subduction zone in western central Oregon by means of converted teleseismic P waves, also known as the receiver function method. The experiment will collect data across a 200 km dense array of PASSCAL portable broad-band seismometers. With the array, the experiment will be able to trace the evolution of the crust as it is being absorbed into the mantle at depth. These results should help to understand the tectonic nature of the subduction zone and its associated seismic hazard. This research is a component of the National Earthquake Hazard Reduction Program.